Problems in Algebraic Geometry

The Investigator and his colleagues will study a number of
problems in complex algebraic geometry. First, they will
explore some new asymptotic invariants of linear series on
a projective variety, especially their variational behavior.
While the geometry of linear series is a very classical topic,
new methods have the potential to shed light on basic properties
that have not up to now received much attention. A second
project involves the exploration of some new invariants arising
from multiplier ideals: these jumping numbers generalize the
much-studied log-canonical threshold of a divisor or ideal, and
they seem to encode quite interesting geometric and algebraic
information. Lazarsfeld also intends to use multiplier ideals
to study the Castelnuovo-Mumford regularity of reduced projective
varieties defined by equations of given degree.

The basic focus of this project (so-called "linear series on
algebraic varieties") can be viewed as families of functions
constrained by geometric spaces. When the spaces have low
dimension such linear series have been used to find efficient
ways to encode data, for example on CD's. The Investigator and
his colleagues will study the new phenomena that arise when the
geometric spaces have higher dimension.